CAREER: Practical Privacy for Outsourcing Systems

This award is funded under the American Recovery and Reinvestment Act of 2009 (Public Law 111-5).

As computing becomes embedded in the very fabric of our society, the
exponential growth and advances in cheap, high-speed communication
infrastructures allow for unprecedented levels of global information
exchange and interaction. As a result, new market forces emerge that propel
toward a fundamental, cost-efficient paradigm shift in the way computing is
deployed and delivered: computing outsourcing.

Outsourcing has the potential to minimize client-side management overheads
and benefit from a service provider's global expertise consolidation and
bulk pricing. Companies such as Google, Yahoo, Amazon, and Sun are rushing
to offer increasingly complex storage and computation outsourcing services
supported by globally distributed "cloud" infrastructures.

Yet significant challenges lie in the path to successful large-scale
adoption. In business, healthcare and government frameworks, clients are
reluctant to place sensitive data under the control of a remote, third-
party provider, without practical assurances of privacy and confidentiality.
Today's solutions however, do not offer such assurances, and are thus
fundamentally insecure and vulnerable to illicit behavior. Existing research
addresses several aspects of this problem, but advancing the state of the
art to practical realms will require a fundamental leap.

This project addresses these challenges by designing, implementing and
analyzing practical data outsourcing protocols with strong assurances of
privacy and confidentiality. It will also l initiate the exploration of the cost and energy
footprints of outsourcing mechanisms. This is essential as the main raison
d'etre of outsourcing paradigms lies in their assumed end-to-end cost
savings and expertise consolidation. Yet, research has yet to explore and
validate the magnitudes of these savings and their underlying assumptions.